A Dissertation Proposal: Reconceptualizing Sovereignty Through Indigenous Autonomy: A case study of Arctic governance and the Inuit Circumpolar Conference

This dissertation proposal in the social science field of International Relations to do research on the Inuit Circumpolar Conference in order to better understand Arctic indigenous politics and how it influences global political development. To test the standing theory of state-centric approaches to international politics, the research will focus on three Inuit entities, the ICC, Nunavut, and Greenland Home Rule. Data will be gathered through archival research and formal and informal interviews in order to shed light on the dynamic process of transnational Inuit identity and autonomy through socio-political discourse and the legitimization of indigenous, non-state collective authority within nation state systems.